Using Neural Networks to Learn Features for Computer Vision

The PI has considerable experience in computer recognition of objects which, if improved, could be of considerable value to areas like robotics and industrial automation. The PI proposes to improve the quality of features used in object recognition, by using newly developed methods for supervised learning taken from the "back propagation" school of neuroengineering. The chances of success in this work are considered quite good.